Functional Morphology and Positional Behavior of Large- Bodied New World Primates

The howler (Alouatta), wooly (Lagothrix), and spider monkey (Ateles) are large New World monkeys and exhibit diverse locomotor patterns ranging from above-branch quadrupedalism to specialized suspensory progression below supports. For a variety of reasons, their behaviors have come to be used as models for interpreting the functional morphology of fossil catarrhine primates of the old world, and our own ancestors. This research project will determine the adaptive significance of the positional behaviors (locomotor, postural, and manipulatory) of these three genera of New World monkeys, and the functional significance of the postcranial morphology that generates those behaviors. The project integrates several approaches; morphological analysis, quantiative skeletal morphometrics, and radiography; motion analysis of video recordings; and observations in natural habitats. The integration of these approaches will produce a coherent body of results concerning relationships among morphology, positional behavior and habitat structure.